CISE Research Resources: Instrumentation for Communications Research in Wireless Ad-Hoc Networking

EIA-0130599
James Krogmeier
Purdue University

CISE Research Resources: Instrumentation for Communications Research in Wireless Ad-Hoc Networking

The Schools of ECE and Civil Engineering at Purdue University will purchase radio frequency test equipment (a network analyzer, an air-interface measurement tool, and radio frequency channel emulators), workstations, Bluetooth Developer's Kits, laptops, and supporting electronic and interface supplies to enhance the capabilities of the Wireless Communications Research Laboratory and the Harold L. Michael Traffic Operations Laboratory in the area of experimental wireless communications research and intelligent transportation systems.

Four research projects will be directly enhanced by the availability of the above resources: 1) Wireless ad-hoc networking for dedicated short range communications applications in intelligent transportation systems, 2) Reduced complexity receivers for continuous phase modulations, 3) Reduced-dimension decision feedback equalizers for high-speed wireless communications, and 4) Embedded signal processing for intelligent transportation systems.

The communications research involved in the projects above is focused on synchronization, channel estimation and equalization, and low complexity receivers for both linear and non-linear modulations. End-to-end network performance is also considered, as is the design of simplified protocols for use in ad-hoc networking. The signal processing research is largely experimental involving the integration of different intelligent transportation subsystems including communications and embedded signal processing for traffic signal control and weigh-in-motion.